U.S.-Brazil Cooperative Science Program: Dynamical Process Simulation on Computers with Parallel Architectures

This US-Brazil Cooperative Science award will support collaboration of Manfred Morari, California Institute of Technology; Anthony Skjellum, University of California Lawrence Livermore National Laboratory; Evaristo Biscaia, Federal University of Rio de Janeiro; and Argimiro Secchi, Federal University of Rio Grande do Sul, Brazil. The project aims to make a comparative analysis of alternatives for dynamic simulation of chemical processes on computers with parallel architectures and supercomputers. Chemical process simulation is responsible for many CPU cycles used on mini and mainframe computers. Simulation models describing industrial processes of realistic complexity translate into problems of very large dimension, and high-speed simulators are required to make these simulations feasible. Thus, high-speed computers must be used, and simulators suitable for these computers must be developed. In this project, the researchers will consider a range of industrial problems in order to improve the performance of the developed algorithms and provide more reliable comparisons with commercial dynamic simulators. The mutual benefits of this project will accrue from the Brazilian side's expertise in dynamic simulation, and the US side's computing facilities at Caltech.